Modification of Current Surface Models to Determine the Impact of Irrigation on Regional and Continental Precipitation Change in a Transient Increase of CO2 Scenario

Abstract ATM-9709948 Song, Jie Northern Illinois University Title: Modification of Current Surface Models to Determine the Impact of Irrigation on Regional and Continental Precipitation Change in a Transient Increase of CO Scenario This proposal is for a research planning grant. In the proposed stage, the PI will 1) collect existing micro-meteorology, hydrology, and biology data from two Long Term Ecological Research (LTER) sites to obtain data necessary to quantify five basic components of the land surface models and their inter- relationships, and 2) to calibrate and validate the modified land surface models with the help of collected data. The overall goal of the proposal is to investigate the impact of potential increase in irrigation in a transient CO2 increase scenario.